Fourier Analysis Techniques and Applications

DMS 0400423
R Torres
University of Kansas
Fourier Analysis Techniques and Applications

ABSTRACT

This proposal is devoted to investigations in the analysis of operators associated to singular integrals, product-like operations, function
spaces and approximations, estimates for commutators and null forms,
and other related problems. The main tools to be used are decomposition
techniques related to time-frequency expansions. Singular multilinear
pseudodifferential operators will be studied together with their
application to nonlinear analysis, estimates in Sobolev spaces, and
partial differential equations. Another part of the project is
concerned with the mathematical modeling of transformations of
quasi-ordered geometries as measured by their Fourier spectra. This is
motivated by ongoing research in biology in the analysis of the
scattering of light by nanostructures in the tissues of living
organisms.

A common task in both theoretical and applied problems is to find the
best way to decompose a complicated system in a way that efficiently
quantifies observable properties and effects and keeps the available information in an organized and manageable form. Fourier analysis decodes such
information by resolving a signal or function into a spectrum of waves
of different amplitudes and frequencies, while providing also a way to study spatial order, structured geometries, and patterns in data. Combined with this analysis, multilinear approaches to complicated phenomena in nonlinear science will provide further understanding of problems where simple linear or first-order approximations are not sufficient. The analysis of ordered structures is also of importance to research in other areas of biology and physical sciences. For example, it is a relevant aspect in questions about the study of macroscopic physical properties of materials in terms of their microscopic structures.